Enahncing STEM Programs through Research and Culturally Relevant Curricula

This proposal has three goals. The first goal is to stimulate interest in STEM degrees and
careers by offering a BS degree program in Environmental Science using culturally
sensitive courses, laboratory experiments and other activities. The second goal is to
continue and expand innovative programs of recruitment and retention of students in
STEM degree programs. These include experimential learning programs for SBC students
and local high school students and outreach programs for K-12 students on the SRSR.
The third goal is to expand and improve research opportunities for students in STEM
related degree programs. Students in the BS degree program in Environmental Science
will be required to complete a research project. The development of the Research
Laboratory will greatly enhance the learning and research opportunities for students to
complete research projects. SBC will apply for a loan to begin commercial analysis of
environmental samples on SRSR. Ultimately, SBC hopes this laboratory can become an
independent commercial laboratory for environmental analyses.